Doctoral Dissertation Research: The Expansion of Japanese Enterprise Networks and Industrialization in Southest Asia: A Case Study of Indonesia and Malaysia

9320899 Arrighi This is an award under the Grants for Improving Doctoral Dissertation Research program. It is a study of the penetration of Japanese business networks into Indonesia and Malaysia since 1980. The student will travel to these two countries and collect systematic data on a wide range of local firms which have received Japanese investment or are involved in other forms of networking connections to Japanese companies. Through quantitative analysis of the data collected, the changing pattern of Japanese business penetration into Indonesia and Malaysia and the impact of such penetration on the economies of those two countries will be examined. The sources of industrial competitiveness is a central issue of great practical as well as theoretical importance. Previous work has suggested that innovative forms of Japanese economic penetration of other countries which involve networking and subcontracting, rather than vertical integration, have contributed to Japanese economic success. Through studying concrete examples of how Japanese economic penetration is occurring in two of the most dynamic economies of the world, this project should shed light on such claims. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph. D. dissertation. Thus it contributes to the future scientific manpower of the nation and the thorough training of the next generation of social scientists. ***